(SGER) Preliminary Steps Toward a Verifiable Kernel

Computer system reliability and robustness depends on operating system
correctness. An incorrect operating system is vulnerable to random crashes
or, worse, attack, where one program corrupts another program's execution.
Thus, the longstanding goal of a verified operating system: one whose
correctness is proved beyond doubt. Although aspects of operating systems,
such as interactions with memory hardware, are currently hard for even
advanced automatic verifiers, coordinated kernel interface changes and
verification advances may be able to break this impasse. This exploratory
research program addresses several basic issues in kernel verification.
Advances are made both to the BLAST lazy predicate abstraction verification
tool, and to a small, readable kernel specially designed for verification.
Particular advances include specialized types and abstractions for
bit-packed structures and for unbounded data structures, and transactional
kernel interfaces. All tool advances will be made publicly available.
This program will clear the obstructions to a more ambitious project: the
construction of a fully verifiable kernel. Its success will connect the
operating systems and verification communities, leading to more reliable,
dependable systems and system designs.